Summer Institute in Mathematics and Computer Science for Pre-College Teachers of the Hearing Impaired

The Department of Mathematics and Computer Science of Gallaudet University will sponsor the 1986-1988 Summer Institute in Mathematics and Computer Science for Elementary and Secondary Teachers of Hearing Impaired Persons. One hundred and ten elementary and secondary teachers of the hearing impaired from various schools across the country will come to Gallaudet for a six-week workshop in each of three years. Fifteen elementary school teachers and fifteen secondary teachers who will be selected to participate in year one will have the opportunity to choose courses in mathematics, computer literacy, geometry and advanced algebra. Nine credits will be awarded for the completion of these courses which will include training in the basic concepts of mathematics, computer programming and applications and methodology and application of classroom teaching skills. The project director will be visiting the schools during the school year to observe and follow-up the progress of the teachers in their classrooms. He will offer the resources of the University as well as the project staff to help the teachers improve their mathematics teaching.